Noncommutative Algebraic Geometry

ARTIN, 97-00925 The most important results of the classical theory of algebraic surfaces, which date back to the turn of the last century, characterize the surfaces which contain families of lines: the rational and ruled surfaces. Recently, some interesting "quantizations" or deformations of these surfaces have been found. In these quantizations, the functions on a surface are replaced by operators which do not commute. It is conjectured that the noncommutative surfaces which are not finite over their centers are precisely the analogues of the rational and ruled surfaces. The program of research is aimed at carrying the clasqical theory over to the noncommutative case and proving these conjectures. This is research in the field of algebraic geometry and noncommutative algebra. Algebraic geometry is one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origin, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Noncommutative algebra, which has roots in in matrix theory and in physics, combined with classical algebraic geometry may have applications to modern physical theory.